Moduli spaces, homotopy Frobenius algebras and mirror symmetry

Abstract

Award: DMS-0706945
Principal Investigator: Kevin J. Costello

The moduli spaces of Riemann surfaces play a central role in many
areas of mathematics and theoretical physics, including geometric
and algebraic topology, symplectic topology, string theory, and
number theory. This project explores another manifestation of
the moduli spaces of Riemann surfaces, which is maybe not so
widely known. This is their appearance in homological algebra,
and more precisely in the study of cyclic A-infinity algebras (a
kind of "Frobenius algebra up to homotopy"). The philosophy
underlying much of this project is that everything one can say
about the homotopy types of the various moduli spaces can be
expressed in terms of the homotopy theory of cyclic A-infinity
algebras. One precise manifestation of this philosophy (which
will be proved in this project) is that the moduli space of
surfaces arises as certain "homology operations" for cyclic
A-infinity algebras. This theoretical result will be used to
investigate some concrete higher-genus aspects of the mirror
symmetry conjecture, which plays a prominent role in current work
on algebraic and symplectic geometry. In particular, this
project will attempt to compute the conjectural mirror partner of
the higher-genus Gromov-Witten invariants in some examples.

The space of all possible two-dimensional shapes -- known as the
moduli space of surfaces -- has long been a fundamental object of
study in many areas of mathematics, from geometry to number
theory. This space also plays an important role in string
theory, the putative "theory of everything". This project is
concerned with setting up a correspondence between
two-dimensional geometry (the moduli space of surfaces) and a
kind of abstract algebra. This correspondence will be used to
test certain mathematical conjectures coming from string theory.
String theorists have predicted that two different simplified
models of string theory-- known as the A model and the B model --
are mathematically equivalent. This prediction has stimulated a
great deal of mathematical work in the last 15 years. The PI
will tackle some computations in the B model which have been
heretofore out of reach. The results of these computations will
then be compared with known computations in the A model,
hopefully leading to further verification of the predictions of
string theory.